Collab: Woody Encroachment Into Desert Grassland: Experimental Asessment of the Critical Establishment Phase

The proliferation of shrubs and trees in arid/semiarid grasslands and savannas in recent
decades has been widely documented. This worldwide phenomenon threatens the
livelihood of rural economies through adverse impacts on livestock production. It is also
thought to have had a significant impact on the terrestrial carbon cycle in North and
South America, Australia and Africa. The ability of woody plants to encroach into
grasslands varies widely among species. Why are some so successful and others not?
The study will address this question by determining how woody plants gain their
foothold in grasslands during the critical establishment phase. By comparing the
survivorship and growth of more and less successful woody encroachers under a range
of climatic conditions and disturbances (defoliation), the study will determine a) which
root and shoot growth characteristics, of the many that seem plausible, are reliably
associated with encroachment potential; and b) how soil properties (such at clay
content) may amplify or mitigate environmental factors influencing encroachment
potential. The goals are two-fold: (1) to develop guidelines that can be used to identify
potential problem species and characterize the conditions under which they are likely to
establish so that appropriate management actions can be taken to minimize their
invasion into grassland; and (2) to generate information needed to parameterize
simulation models that can be used to forecast when and where woody plant invasions
are likely to occur, thus giving land managers time to develop and implement
appropriate preventative measures. Outreach activities will be an integral part of this
work.